SGER: Toward Evaluating a New Radiation Code in the National Center for Atmospheric Research Climate System Model (NCAR-CSM)

This SGER award has the following objectives:

(i) To upgrade the radiation scheme to include improved treatments of radiative transfer and parameterizations of optical properties; and
(ii) To provide expanded capabilities including the ability to provide radiances, fluxes, photo-synthetically active radiation (PAR) and other quantities required of other modules of the Community Climate System Model (CCSM).

The work is important because it will lead to flexible tools to allow either the existing CCSM radiation code or the new code to be used for future work on simulated satellite radiances, actinic fluxes and other parameters of broad interest to the community.